Computer Science, Engineering, Mathematics Scholarship Program

This project supports students of high ability and financial need to pursue studies in Computer Science, Engineering, and Mathematics (CSEM) . The objective of the program is to provide academic opportunities to students who otherwise might not be able to achieve these goals, to provide an improved education with academic support courses, and to improve their retention rate by lowering their employment load. A committee of key personnel from the CSEM departments at the university, Bakersfield (CSUB) oversees this program and develops the academic support structure which is necessary to provide encouragement to the students as they move towards graduation in their chosen fields.